The Numerical Solution of Differential Equations in Mechanical and Electrical Engineering Field Problems on the Hypercube Parallel Computer

A collaborative effort to develop algorithms for the numerical solution of problems arising in electrical and mechanical engineering on massively parallel super-computers will be initiated. The three boundary-value problems that will be used as examples include Laplace's equation, Poisson's equation, and the reduced wave equation. These equations appear in electromagnetic fields, heat conduction and diffusion, and fluid mechanics. The problem of distributing the computational tasks associated with finite element method will be addressed. These tasks include assembling the system of equations and the solution of large sparse, systems of equation using frontal methods and multi-level adaptive techniques. Two- and three-dimensional open domain problems will be studied as they seem particularly suited to the hypercube architecture. Furthermore, resources will be used to train interdisciplinary graduate students which serve to build infrastructure and foster collaboration within engineering.